Connection to NSFNET for GMI Engineering & Management Institute

General Motors Engineering and Management Institute is establishing a connection to NSFNET via a 56,000 bits per second line through the MICHNET state network. The connection enhances collaborations of campus scientists with colleagues at other institutions, and allows access to libraries and other remote facilities throughout the internet. This award funds part of the costs for installation of the connection and operation for the first year.***//